Purchase of a Fourier-Transform Infrared Spectrometer

A recently acquired Fourier Transform Infrared Spectrometer (FTIR) is being used in the undergraduate chemistry curriculum at Oberlin College. This powerful microcomputer-controlled instrument provides more rapid spectral analysis together with higher resolution than can be obtained even with a research-grade dispersive instrument. Seven courses and 150 students in upper and lower division classes will be directly impacted by the use of this FTIR.